An Industrial Partnership to Improve Mathematics and ScienceEducation in Central Florida

The University of Central Florida and Martin Marietta Corporation have formed a partnership resulting in the founding of UCF/Martin Marietta Academy. The aim is to improve mathematics and science education in K-8 public schools in three Central Florida counties. Thirty teachers per year for each of the 4 years of the program will participate in the Academy. Teachers will attend the equivalent of four semesters of courses, which will include mathematics and science content, pedagogical aspects of teaching mathematics and science and leadership training. Teachers will be chosen in pairs from each target school. Follow up activities will include networking among the teachers in different schools and with the University faculty. Teachers will receive credits towards a Masters degree upon completion of the program. Each teacher in the program will supervise and mentor an undergraduate education major. Active and retired scientists will act as mentors in the schools. Cost sharing is 84%